Workshop: Cybertrust PI Meeting; August 18-20, 2004; Pittsburgh, PA

Proposal Number: 0447420

TITLE: Cyber Trust PI Meeting

PI: Donald J. McGillen

Abstract:

Carnegie Mellon University will host a meeting of Cyber Trust Principal Investigators and others interested in Cyber Trust research areas at a hotel located in Pittsburgh, Pennsylvania August 18, 2004 - August 20, 2004. The purpose of the meeting is to convene the set of Principal Investigators funded under the NSF to pursues research in the Cyber Trust emphasis area. The meeting will encourage synergy among the researchers and research projects by means of planned technical sessions and opportunities for informal discussion. A public website will provide information about the workshop and will archive the talks and papers presented at the workshop